Project Leadership in High School Science and Mathematics

This Leadership Activities project provides current and relevant content and methodology to 200 science and mathematics teachers in the 22 high schools of Queens County, New York City over the next three years. The 200 teachers involved directly will, in turn, serve as leaders in the enhancement of their colleagues in subject matter and classroom instructional strategies and methods. 60 mathematics, 60 biology, 40 chemistry, 20 physics and 20 earth science teachers will be the direct beneficiaries of the program during the time of the project. These teachers will then work with the 550 remaining science and mathematics teachers in the Queens County high schools. The project activities include 4-week summer institutes in 3 of the subject areas each summer, 6 follow-up workshops during the academic year, inservice activities at the high schools by the participating teachers, and periodic visits, collaboration and consultations among the project faculty, participating teachers, and their peers. A Science Resource Center will be developed at York College during the term of the project and serve as a means of continuing the project activities once NSF funding ceases. A thorough needs assessment was completed prior to the submission of the proposal. The personnel involved included a representative sampling of the client population who expressed a felt need for the content and methodology update because of the new Regents science and mathematics curricula which are to be implemented in the immmediate future. Further several teachers had not participated in such renewal activities for several years.